CAREER: Fast Methods for Particle Dynamics and Their Applications

This project will develop innovative techniques and software for so-called
"fast methods" for n-body solvers and their applications. An n-body solver
computes the behavior of a set of interacting particles; examples run from
the solar system (9 planets interacting through gravity) to computer chips
(billions of atoms that attract or repel electrons). "Fast" methods for
these solvers use data structures such as trees to minimize the number of
computations. Typically, the data structure summarizes the interactions of
a group of particles, eliminating the need to compute all of the pairwise
interactions. Managing the data structure makes these methods difficult to
program, particularly on modern parallel machines.

This project addresses algorithmic issues, serial and parallel performance,
portability, and I/O requirements for fast methods for particle dynamics in
selected applications. Specifically, the project makes research
contributions in the following areas:

* Error Control and Boundary Conditions: This project will extend recent
work in variable degree multipoles to improve error bounds in non-uniform
particle distributions while minimizing the added computation.

* Robust Parallel Algorithms and Libraries: This project will build
calibrated portable libraries of fast solvers capable of adapting to
dynamic computational platforms like clusters of multiprocessors.

* Data Analysis and I/O Control: This project will investigate compression
schemes capable of effectively handling the huge amounts of data generated
by particle dynamics simulations.

The education plan includes a variety of initiatives at various levels. The
Computer Applications in K-12 Education in Science (CAKE) program will
introduce pre-college students to the use of high performance computing and
networking, using GUIs based on the research libraries as teaching tools.
A series of courses, seminars, and workshops on parallel computing and its
applications will extend the education to the undergraduate and graduate
levels at Purdue University.